Engineering Research Equipment: Equipment for the Measurement of Fast Voltage Transients

This is a Research Equipment Grant for a laboratory to do measurement of fast voltage transients. The funds will be used to purchase an opto-electronic voltage probe, an optical transmission line, and ancillary equipment. The equipment will be of immediate benefit in two projects: 1) Laboratory simulation of lightning-induced voltages on overhead power lines; and 2) Effects of non-standard voltage waveshapes on impulse strengths of dielectric systems.